The Cooling of High Intensity Electrodeless Bulbs

Both the miniaturization and the increase of power of UV light sources are currently seriously limited by the capability of cooling such devices. Such light sources are presently used in drying industrial inks, coatings and adhesives on papers, metals, glasses and other substrates. Furthermore, similar equipment is employed in the manufacture of semiconductor devices. Higher power sources will allow for greater collimation of the light output, which would be highly advantageous for optical lithography. In Phase I of this SBIR Award, the basic nature of the physical mechanisms involved in the jet cooling of spheres will be examined, with a view to obtaining improved cooling capability of spherical light sources. Experiments are to be conducted to evaluate the effectiveness of techniques such as acoustic excitation, pulsing of the jet lips, pulsing of the oncoming flow, and shaping of the jet nozzle. These techniques are expected to markedly increase the entrainment rate and, thereby, the degree of mixing--with a consequent net increase of the heat transfer capability of the jet cooling. ____________________________ ____________ Program Director's Signature Date//